SGER: A Rapid Method for Simultaneously Quantifying and Identifying Marine Microbes

9900301, Azam
A methodology is presented that, if successful, will simultaneously quantify and qualify the majority of microbes present in an environmental sample. Such a methodology is a prerequisite to studying the distribution and diversity ofmarine microbes on the ocean basin scale. The research method is based on the fact that a seven base pair DNA tag, if sufficiently divergent, can differentiate between thousands microbial species. To be useful this tag region must be invariably located within a microbe's genome and it must be associated with a conserved DNA region that can be used to isolate the tag A tag region within the RNase P locus, a ubiquitous nbozyme, that fulfills the criteria ofbemg highly divergent and located next to a conserved region is identified. Fortuitously, the RNase P locus is also always found as one copy per genome. Therefore, this tag can be used as a quantitative, as well as qualitative, indicator of the microbial species present in a sample.